Polymer Reaction Kinetics: Process and Simulation for the Undergraduate Laboratory

Polymer properties, such as molecular weight and copolymer composition, are highly dependent on the process conditions under which they are made. The enhancement in understanding of the underlying concepts by undergraduate chemists and chemical engineers in the interdisciplinary field of polymer science is needed. This is to be accomplished by the coupling of reaction simulators with experimental design, reactor operation and process measurement. The equipment is specific for this purpose: 1) microcomputers for simulator development and studies; 2) computer controlled laboratory reactor for metering reactants and controlling, monitoring and recording reaction conditions; and 3) monomer/polymer monitoring equipment for determining conversion. Traditional polymer lab courses barely touch on the decision making processes behind the synthesis of various polymers and then only in a qualitative manner. In addition, the importance of monitoring and controlling the process is typically overshadowed by the need to measure the polymer properties. These are highly interdependent and of equal importance. An undergraduate's experience in both areas is necessary particularly with the increasing importance placed on communication between the bench chemist and the plant engineer.